RUI: Acquisition of Equipment for an Ultrasonic Interfero- metry Laboratory for Accoustic Velocity Measurements

9304735 Gwanmesia This award provides partial funding for equipment that will be assembled and operated in the Department of Physics nd Astronomy at Delaware State college. The equipment will enable the Principal Investigator and his students to establish an ultrasonic interferometry system for the measurement of sound velocities through mineral and rock samples. Such measurements are important constraints on seismological models of the Earth's internal structure. ***